Gravitational Radiation From Compact Objects

In support of the NSF's gravitational wave observatory LIGO which is currently under construction, this project aims to produce models of binary compact object systems by numerical solution of the Einstein gravitational equations coupled, when appropriate, to fluid matter. Compact object here refers to neutron stars and stellar mass black holes. When closely coupled in pairs revolving about each other these systems can lose energy by radiating gravitational waves. This has been seen to occur in the binary pulsar system through the observation and analysis of the motions. But more tightly bound and rapidly moving systems are expected to evolve to the point where the radiation would be detectable by the LIGO facility. Under this grant Prof. Charles Misner of the University of Maryland will engage in a collaboration, to produce detailed computer generated models of such radiating systems. These models would allow the gravitational wave signals from such exotic systems to be more reliably recognized and interpreted.